ISMB 2004 Conference Support for Students and Young Scientists, to be held in Glasgow, Scotland July 2004.

The University of California at San Diego has been granted an award to facilitate student and young scientist participation in the Intelligent Systems for Molecular Biology (ISMB) conference in Glasgow Scotland in July of 2004. The conference provides a generalforum for disseminating the latest developments in bioinformatics and other computational aspects of molecular biology. The conference is annual and alternates between North America and non-North American sites. The 2004 conference will be held as a joint conference with the 2004 European Conference on Computational Biology (ECCB). The combined goal of the ISMB and ECCB meeting is to bring together biologists and computational scientists in a focus on actual biological problems, i.e., not simply theoretical calculations. The combined focus on "intelligent systems" and actual biological data makes ISMB a unique and highly important meeting that will be of major benefit to those who will be enabled to attend by this award.